GEM: Operation of an Induction Magnetometer at Forbisher Bay, Canada; A Conjugate Site to South Pole, Antarctica

An integral component of the multi-agency U.S. Global Change Research Program (Our Changing Planet," Committee on Earth Sciences, 1991) is understanding and modeling the geospace environment. As part of its contribution to the U.S. Global Change Research Program, the National Science Foundation's Division of Atmospheric Sciences has established a new research initiative, Geospace Environment Modeling (GEM), with the goal of supporting basic research into the dynamical and structural properties of geospace, leading to the construction of a global geospace model with predictive capability. The subjects of the first GEM campaign are the magnetospheric boundary, the magnetosheath beyond it, and the connection from the boundary through the magnetosphere to the ionosphere. This grant requests support to operate an induction coil magnetometer at Frobisher Bay, Canada sensitive to magnetic pulsations having periods between 1000 sec. and 0.1/sec. Pulsations in this frequency range could be an important component of the GEM mapping program since they present a possible opportunity to sample superthermal and energetic ion populations in their generation region